SHF: Automated Reasoning with Cardinality Constraints (ARCC)

Automated reasoning tools underpin many advances in computing, yet their effectiveness is limited by the need to express problems in low-level formats that obscure natural structure. This project advances a new paradigm that elevates counting constraints, such as requiring that a specified number of conditions hold, to first-class status within solver representations. By doing so, it enables more expressive, scalable, and user-friendly reasoning across a wide range of applications. The project’s novelties are the introduction of a cardinality-extended representation that unifies high-level modeling with state-of-the-art solving and formal verification, together with methods that integrate these capabilities into existing workflows. The project's impacts are transformative improvements in the performance, reliability, and accessibility of automated reasoning tools, with broad implications for hardware and software verification, combinatorial mathematics, and artificial intelligence. The project will strengthen AI and machine learning toolchains by enabling scalable verification.

The project develops a cardinality-extended normal form (KNF) that augments clause-based reasoning with native support for cardinality constraints, enabling tighter integration of propagation, learning, and optimization. It investigates advanced encoding strategies, dynamic solving techniques that adaptively combine native and clausal reasoning, and incremental and core-based approaches to maximum satisfiability. A central thrust is trustworthy solving, achieved through proof-producing solvers and formally verified checking of both encodings and solver outputs. The project further develops scalable techniques for recovering cardinality constraints from existing formulas, facilitating immediate adoption across legacy benchmarks and applications. Expected advances include substantial improvements in solver performance, reductions in proof complexity, and robust end-to-end verification guarantees. These advances will directly benefit AI and machine learning systems by enabling certifiable reasoning and enhancing high-performance constraint solving.